Models of Human Kinematics

This project is about the study of representations and algorithms for the computational modeling of human movements. The ultimate goal is to devise a general representation of human motion structure that potentially covers a wide range of domains: from subtle lip motions during speaking and facial expressions, to complex hand and full-body gestures. Possible applications include improved visual tracking algorithms, gesture classification tasks, face and body animation tasks, and new tools for bio-medical studies. Corner-stones will be the use of large example motion databases and appropriate statistical estimation algorithms. In this proposal, we specifically focus on techniques that can acquire kinematic models from video sequences. These models and measurements will be a building block for further studies on dynamics and higher-level human activity representations and will aid motion studies for research in bio-mechanical and medical projects.